Mathematical Sciences: 2nd International Conference on Mathematical Population Dynamics; May 17-20, 1989; Rutgers University, New Jersey

This project will support the Second International Conference on Mathematical Population Dynamics that will be held May 17-20, 1989 at Rutgers University. The meeting will be organized by Professor David Axelrod. The focus of this conference is the mathematical modeling of heterogeneous biological populations. An interdisciplinary forum for the exchange of ideas between biologists and mathematicians will be provided. Topics will include population of genes, cells, and tumors, the natural history of cancer, and selected topics from epidemiology. The mathematical topics relevant to these areas include branching processes, stochastic models, random walks, spatial processes, structured populations, semigroups of operators, and dynamical systems. Special efforts will be made to facilitate understanding between theoreticians and experimentalists and between established scientists and junior colleagues.